SBIR Phase I: Innovative Reburning Technique for Deep NOx Control

*** 96-60084 Zamansky Prospective technologies for stationary post-combustion NOX control include: Selective NonCatalytic Reduction (SNCR), Selective Catalytic Reduction (SCR), and reburning. SNCR and SCR reduce NOX by non-catalytic or catalytic reactions with N-agents (ammonia or urea). There are several problems with SCR, such as high capital cost, limited catalyst life, catalyst poisoning and disposal. SNCR is less expensive, but capabilities of SNCR are limited by the narrow temperature window of NOX control, ammonia slip, low utilization of N-agents, and formation of N2O with urea injection. Conventional natural gas reburning is currently a mature technology for NOX control. Reburning has been successfully demonstrated at full scale by EER and others on numerous occasions. However, reburning alone provides about 60% NOz reduction and cannot achieve 80% required by ozone attainment regulations in certain geographic areas. The proposed project is directed towards improving performance of the reburning process by injection of air in the reburning zone under specific conditions. The goal of the project is to achieve 80% NOX removal by the Air Promoted Reburning (ARP) process. In a combination with other inexpensive NOX control methods (such as low NOz burners and SNCR), the APR process will make it possible to reduce NOX by 90+%. ***